Antarctic Lithosphere Working Group 1994-1996

9420086 Rowell This award supports a series of workshops by the Antarctic Lithosphere Working Group (LWG). This group affords a broad conduit for exchange of information between the earth sciences program within the US Antarctic Program (USAP) and the diverse parts of the earth science community. As such it is a forum for discussion of the future goals of Antarctic geology and geophysics research and the future needs of researchers from the operational portion of the USAP. More specifically, the group brings to the program, ideas about new scientific and technical opportunities, programmatic needs, and programmatic opportunities as perceived by the wider earth science community. The LWG also serves to provide feedback to the program on logistical support questions relating to the USAP. In providing this function, the LWG constitutes a useful management tool to help integrate science goals with operational portions of the US Antarctic Program. ***